CMMI-EPSRC: Mechanistic Understanding on in-situ Formation and Dispersion of Oxide Particles During Friction-based Manufacturing

This award supports fundamental research on turning a long-standing problem in metals manufacturing into a benefit. Magnesium alloys are the lightest structural metals, and replacing heavier metals with magnesium in satellites and spacecraft frees up weight for additional payload and lowers launch costs. However, magnesium reacts readily with oxygen during casting and manufacturing, forming oxide particles that ordinarily act as defects that weaken the metal and limit its use. This project investigates friction-based manufacturing methods, which shape and build up metal in the solid state without melting, while concomitantly breaking up these oxide particles and spreading them uniformly through the metal as extremely fine particles, hence strengthening the metal. The resulting magnesium alloys are expected to better withstand the extreme temperatures and radiation of space, supporting the growing United States space industry and advancing national prosperity and security. The project is funded jointly by the National Science Foundation and the Engineering and Physical Sciences Research Council of United Kingdom Research and Innovation, brings together university researchers in both countries with a leading magnesium alloy producer as an industry partner, and trains graduate and undergraduate students in advanced manufacturing, materials characterization, and computational modeling.

The goal of this project is to establish a mechanistic understanding of how oxide particles form, evolve, and disperse during friction-based processing and manufacturing of magnesium alloys, and to use that understanding to create oxide-dispersion-strengthened magnesium alloys through solid-state additive manufacturing. The research will examine model material systems of increasing complexity: commercially pure magnesium, a binary magnesium-yttrium alloy, and a commercial magnesium alloy containing yttrium and rare-earth elements that is being considered for space applications. Feedstocks will be cast with intensive melt shearing to pre-disperse native oxides, then subjected to parametric friction stir processing and additive friction stir deposition experiments that systematically vary processing temperature and atmosphere, including deposition under argon shielding with controlled oxygen contents. Multiscale characterization using electron microscopy and synchrotron-based techniques will quantify the structure, composition, size, and number density of both native magnesium oxide and rare-earth oxide particles as they evolve from casting through friction-based processing. Atomistic simulations of oxide interfaces and segregation behavior, combined with mesoscale process models informed by the experimental results, will reveal how temperature and severe shear strain drive particle fragmentation and dispersion, and will guide optimization of the deposition process. The performance of the deposited alloys will then be evaluated through tensile and creep testing at temperatures up to 300℃, cryogenic testing down to -196℃, thermal cycling under vacuum, and helium ion irradiation to simulate the low Earth orbit environment. This project is expected to advance the fundamental science of dispersing hard particles within a soft metal matrix and to establish a pathway to high-performance, oxide-dispersion-strengthened lightweight alloys for space applications.